Microstructural Modelling of Diffusive Transport in Porous Polymers

It is proposed to study experimentally both nonerodible and bioerodible polymer pore structure and morphology. Both polymers exhibit structurally complex systems, and the bioerodible components will show a dynamically changing pore structure. Although it may not be possible to perform a fully computerized image analysis of these systems within the constraints of the grant, scanning electron microscopy (SEM) and light microscopy will provide quantitative insight into the pore morphology of these systems. Photomicrographs of the polymer taken at various times during the erosion process will allow the changing structure to be followed in order to provide the basis for the system model.